Purchase of a 400 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Mount Holyoke College will acquire a 400 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) solution structures of small, diamagnetic proteins and peptides, as well as complex organic molecules including supramolecular assemblies; b) multi-nuclear NMR studies of transient organometallic intermediates; and c) determination of polymer microstructures.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including materials chemistry and biochemistry.